Global Structure of the Milky Way Disk from Distant Variable Stars

Metzger, Mark
California Institute of Technology
AST-9820664

Dr. Metzger will study the large scale structure of the Milky Way's disk using distant Cepheid stars as tracers of the disk's rotation, shape, and scale. His survey, made at 2.2 microns in the near infrared, avoids the heavy extinction by dust that limits optical surveys and permits the detection of stars at large distances. Multiple sampling permits the detection of variable stars, such as Cepheids, whose distances can be accurately determined. These, coupled with the measurement of stellar velocities, from spectroscopy, will be used to develop large scale models of disk kinematics. Much of the survey is complete, and Dr. Metzger will continue with the full, streamlined analysis of the entire data set to produce a catalog of stars in the Galactic plane and their variability at 2.2 microns. The catalog will become the basis for selection of candidate variable stars as targets for follow-up photometry and spectroscopy from which kinematic models will be derived to study issues of distance scales, spiral arm kinematics, and the overall shape of the galactic potential.